Expression and Functional Analysis of Genes Regulating Appressorium Formation in Magnaporthe Grisea

The purpose of the proposed research is to elucidate the mechanisms
regulating the development of the appressorium, a specialized cell required
by the rice blast fungus Magnaporthe grisea (and other fungal pathogens)
for successful host infection. Previous research focused on characterizing
and cloning genes from appressorium developmental mutants. These data have
been used to create a model of appressorium formation for further testing.
In this project, advantage will be taken of progress to date as well as new
resources available at the Clemson University Genomics Institute. It is
now possible to analyze the expression of many genes under a variety of
developmental conditions. As many of those genes involved in appressorium
formation as possible will be identified through differential hybridization
analysis. Gene expression in various appressorium deficient mutants will
be exploited to identify potentially key genes. The function of these
genes will be investigated by gene disruption. Finally, to begin to define
the interplay of proteins regulating appressorium formation the interaction
of gene products will be evaluated.

Objectives include:
1. Identify genes involved in the regulation and development of
appressorium formation. This objective covers the completion of ongoing
research, specifically APP1 cloning and identifying genes tagged by
insertional mutagenesis. In new research, genes involved in appressorium
formation will be identified by differential hybridization of cDNA
libraries arrayed on high-density filters. Identified cDNAs will be
sequenced and deposited in public databases.
2. Evaluate role of appressorium genes through gene disruption.
3. Begin to define the regulatory networks governing appressorium formation
by exploiting the 2-hybrid system.

Results from this investigation have practical as well as conceptual
significance. The identification of genes and pathways essential for
infection to occur can be exploited to create rational mechanism based
inhibitors.